Teacher-in-the-Loop: A Dynamically Evolving AI Assessment System for STEM Learning

Recent results from the National Assessment of Educational Progress show fewer than one-third of eighth graders reaching science proficiency. To improve student performance, teachers need access to high-quality teaching and learning resources to orchestrate robust science instruction, including rich, open-ended formative assessments to monitor and support students’ scientific reasoning. Reviewing and scoring student work is time-consuming, creating a bottleneck for offering timely, actionable feedback to students. Existing automated grading tools apply a one-size-fits-all approach that often ignores a teacher’s instructional goals, communication style, and judgment. This project will develop and research a “teacher-in-the-loop” artificial intelligence (AI) system that enables middle school science teachers to provide student feedback more efficiently while centering the teacher as the key instructional decision maker in the classroom. The AI feedback system will learn from the teacher over time, adapting to their priorities and style and becoming a personalized amplifier of their expertise. The project serves the national interest by strengthening science education, supporting teachers in using best formative assessment practices, and advancing knowledge about how educators and AI can work together.

The project will develop and research an AI-guided formative assessment system that evolves as it is used, learning each teacher’s pedagogical priorities and drawing on their prior feedback. Its suggestions will increasingly reflect the teacher’s own voice and pedagogical expertise, supporting timely feedback on cognitively rich, standards-aligned assessment tasks. A large language model will tag complex student artifacts against an annotated standards database and group semantically similar responses. An interactive dashboard will allow teachers to simultaneously review each group of responses and provide feedback efficiently that reflects a teacher’s unique approach to assessment rather than applying a generic model. Guided by a design-based research methodology, the development effort will proceed through iterative co-design with teachers and internal validation against thousands of existing de-identified student responses, rapid classroom testing cycles with teachers, and a pilot study with 14 seventh-grade teachers and approximately 700 students, comparing treatment and control conditions. The project will contribute new understanding of human-AI co-adaptation in education and yield openly available tools and findings for the assessment, learning sciences, and AI-in-education communities.

This project is funded by the Research on Innovative Technologies for Enhanced Learning (RITEL) program that supports early-stage exploratory research in emerging technologies for teaching and learning.